Heterophilic Adhesion and Sorting of Myelin Po Protein

Myelin is a multi-layered membrane that wraps around the axons of neurons, insulates them, and allows nerve conduction to take place efficiently. One protein of myelin, termed Po, behaves as an adhesion molecule and is believed to hold the layers of myelin together. In addition, Po protein has been shown to enhance the growth of a growing axon. We are investigating what precise regions of the Po molecule are involved in interaction with the neuron to promote axonal growth. Furthermore, we are beginning to characterize the component on the neuron with which Po interacts to bring about this effect. Finally, for the Po protein to function correctly it must reach its correct cellular destination. We are characterizing how the cell that makes myelin, the Schwann, directs Po to its final destination.